Function Theory in Several Complex Variables

Proposal: DMS-9970493
Principal Investigator: Xiaojun Huang

Abstract: The Principal Investigator proposes in this project to work on a number of problems in the area of several complex variables and Cauchy-Riemann geometry. These problems are interesting and important not just from the point of view of complex analysis, but also from the perspective of differential geometry, nonlinear analysis and PDEs, classical dynamics, and mechanics. More specifically, Huang wishes to further the present understanding of various rigidity phenomena in several complex variables. This includes the classification of holomorphic mappings between balls in different complex spaces. He would like to understand the local holomorphic invariants of a certain class of real submanifolds of complex spaces, the so-called the Bishop manifolds. He intends to continue his previous work on the regularity of CR mappings between real analytic hypersurfaces and his investigation of invariant metrics, including their applications to the study of dynamical properties of holomorphic mappings.

Complex numbers and functions of complex variables have become, since the 19th century, indispensable tools in many areas of mathematics and in its application to other areas of science and engineering. Indeed, the solutions of many problems in the applied sciences could ultimately depend on an improvement in these complex analytic tools and a better understanding of their basic properties. For instance, engineers working in planar aerodynamics must contend with the interplay between vertical and horizontal speeds. It is now well understood that if one takes the simple step of combining these two speeds into a vector and then representing that vector as a complex number, many aspects of the aerodynamic flow become much easier to visualize, with the result that many problems become easier to solve. Similarly, in materials science the standard method for treating multidirectional stresses in a uniform way is to represent them as complex numbers or, in more complicated situations, as complex functions. It then turns out, for instance, that the direction of the propagation of cracks in materials is mysteriously related to the properties of certain equations associated with these complex numbers or functions. Results of the research to be carried out in this project could lead to the discovery of new properties of solutions of these very equations, which would then translate to a deeper understanding of the related mechanical properties of materials.